Proposal for Partial Support for U.S. Scientists to Attend XXXI'st Recontres de Moriond; Les Arcs, Savoie, France

9600719 McLerran This grant award covers expenses incidental to the participation of young scientists in the Moriond Conference no XXXI in Les Arcs, Savoie, France. The annual Moriond assemblies provide an opportunity for close interaction among physicists who share interests in different aspects of particle physics. The sessions are organized around presentations for one week in Electroweak Theory and Unified Theories one week in QCD and High Energy Hadronic Interactions. ***